U.S.-Italy Cooperative Research: Biophysical Characterization of Type 3 Copper Sites

This award will support collaborative research between Prof. Jack Peisach of Yeshiva University and Dr. Benedetto Salvato of the University of Padova, Italy. The objective of the researchers is to study, using various spectroscopic techniques, the structure of copper proteins in the determination and control of biological functions. Copper is one of the most widespread and versatile transition metals with a functional role in living systems. Many metallo-proteins related to a variety of biological functions such as oxygen transport, electron transfer, hydroxylation and oxidative catalysis, involve copper in some manner. Copper proteins share a general structural feature that allows them to modify the polarity of active sites, control the hydration of substrates, and play an important role during the course of catalysis. Yet, copper proteins vary widely in complexity of molecular architecture as well as in their mechanism of enzyme catalysis. However, copper sites may be classified into three broad categories depending on their spectroscopic characteristics. The investigators plan to study one of these categories (Type 3 copper sites) and the behavior of these sites during the interactions with other copper centers in multi-copper enzymes. The research program will involve the study of hemocyanin, laccase and ceruloplasmin, which contain Type 3 copper units in different molecular environments and have different enzymatic activities. The hemocyanin research group in Padova is one of the leading centers for the comparative study of this protein, having combined expertise in its physical, biological and biophysical chemistry, whereas at Yeshiva University there is unique instrumentation and expertise relevant to elucidation of structure from information obtainable by spectroscopic methods.